Negative Ion Spectroscopy (Physics)

The research focuses on the interaction of atomic particles with electromagnetic fields. The major theme is the study of the effects of strong, oscillating fields on bound-free transitions. Negative ions are studied because it is easier to understand the short range interaction from both an experimental and theoretical point of view. The second major theme of the research is the study of the correlations in two electron atomic systems such as the negative alkali ions. These are easily accessible with tunable dye lasers and the experiments will be carried out using laser photodetachment in an ion beam and an ion trap. The work will lead to an enhanced understanding of the interaction of strong, oscillating fields with atoms and of electron correlation effects.